Poisson geometry, riemannian geometry, and applications

DMS-0204100
Alan Weinstein

Recently, for reasons arising from mathematical physics (string and
membrane theory) as well as from deformation theory, increased
attention is being paid to nonassociative algebraic structures and,
along with them, bracket operations which do not satisfy the Jacobi
identity. Weinstein applies his previously developed theory of
Courant algebroids and Dirac structures to investigate geometric
models for some of these nonassociative structures, generalizing
Poisson structures. A second part of the research concerns
convexity theorems for momentum mappings of hamiltonian symmetry
groups and related questions about the linearization of proper Lie
groupoids. The search for the ``optimal'' convexity theorem in
Poisson geometry is related to the problem of describing the local
structure of proper groupoids in terms of group actions. The analysis
of proper groupoids leads in turn to the problem of averaging families
of submanifolds in riemannian geometry. Previous results on this
problem are being extended and improved, with one goal being an
understanding of the metric geometry of infinite dimensional spaces of
unparametrized submanifolds. Finally, applications to mechanics are
be investigated: groupoids applied to discretized lagrangian systems,
and generalized Poisson structures applied to nonholonomic systems.

Weinstein's research concerns symmetry in geometry, with applications
to physics. Traditionally, symmetry has been described mathematically
in terms of the operation of groups, and the corresponding
infinitesimal operation of Lie algebras. Recently, for reasons
arising from mathematical physics (string and membrane theory) as well
as from deformation theory in mathematics, increased attention is
being paid to more general notions of symmetry, involving algebraic
structures lacking the associativity of a group operation and, along
with them, bracket operations which do not satisfy the Jacobi identity
essential to the notion of Lie algebra. The study of these (and more
traditional) symmetries also involves the use of ``groupoids,'' where
different groups are operating on different parts of a space with
symmetry. Weinstein's study of these symmetries involves a
combination of algebra and differential geometry, as well as some very
concrete geometric questions, a simple form of which is ``what is the
average of two nearby unparametrized curves in space?'' This question
is easy to pose and may have applications in computer
graphics, but it is surprisingly difficult to solve. Finally,
Weinstein is using groupoids in the analysis of discrete lagrangian
systems used to create numerical algorithms.